Applications of Terahertz-to-Infrared Probes in Molecular and Materials Sciences, Arlinton, VA

The workshop "Terahertz-to-Infrared Probes in Molecular and Materials Sciences", which will be held on April 14th and 15th, 2011 in Arlington, VA, will provide a forum for leading experts to assess the need within the materials research, biophysical and biochemical research communities for advanced terahertz-to-infrared light sources. The workshop will include a mix of presentations and discussion, centered around the following five topics 1. Complex bio-molecular dynamics. 2. Molecular spectroscopy in the gas phase. 3. Terahertz-to-infrared microscopy/nanoscopy, nanoscale phenomenon, surface interactions, etc. 4. Condensed matter I - frequency domain spectroscopy 5. Condensed matter II - non-linear and ultrafast phenomena. The workshop will assess the potential broader impacts that could result from the development of advanced terahertz-to-infrared light sources, both in terms of the research that they will enable, and in terms of technical education in areas that are vital to the nation’s continued scientific competitiveness. The conference will give preference to women and minority scientists and is co-funded by the Physics, Chemistry Divisions, the Division of Materials Research in the Mathematical and Physical Sciences Directorate, and by the Molecular and Cellular Biosciences Division in the Directorate for Biological Sciences.